Acquisition of a ConFlo II/EA System and Upgrade for a DELTA-S Mass Spectrometer

Popp (OCE-9711197) ABSTRACT Popp OCE-9711197 Current research activities by the PI and his colleagues at the University of Hawaii require the measurement of precise isotopic ratios of C and N in marine samples. The proposed purchase of an automated C-N isotopic analysis system would greatly enhance the throughput and sensitivity for making these measurements over what is currently available. The PI and his colleagues are experts in the use of such instrumentation and have a proven track record of research accomplishments in this area. Thus the proposed l improvements would lead to a strengthening of current research activities and lead to enhancements in current graduate and post-doctoral education programs and facilitate new research projects not possible without modernization of the current facility at the University of Hawaii. In addition to the $40K of NSF support, $55K in total funds have been approved by the University using an existing ONR building fund to support this equipment purchase, thus significantly increasing total funds to this project.